Equipment to Facilitate Undergraduate Laboratory Investigations in Cellular Biology.

The project is improving the quality of the laboratory part of a course in Cellular Biology. The laboratory experience is acquainting Biology majors with such modern experimental and analytical techniques of Cell Biology as microscopy, tissue culture, cytological, cytochemical, and labeling methods, methods of cell fractionation (esp. centrifugation), and methods of molecular analysis (esp. electrophoresis). The equipment for this project falls into three categories -- microscopy, centrifuga- tion, and electrophoresis: phase-contrast compound microscopes for observing living cells, phase-contrast inverted microscopes for observing tissue cultures, a fluorescence accessory to detect fluorescent stains and labeled antibodies and a video accessory to facilitate group observations, a tabletop ultracentrifuge for cell fractionation, a micro-centrifuge for molecular techniques, and electrophoresis systems for the analysis of proteins and nucleic acids. Instead of depending on demonstrations, all students now can be exposed to a more realistic atmosphere of experimental science that encourages originality and the cultivation of research and problem solving skills. Such experience is particularly valuable for students who are planning to enter graduate school, and those who are planning to become Biology teachers.